Postdoctoral Research Fellowship in Biological Informatics for FY 1999

This action funds an NSF Research Postdoctoral Research Fellowship in Biological Informatics for 1999.

The research and training plan is in the area of prokaryotic genetics and is entitled "Molecular evolution and population genetic variation of neutral and non-neutral loci in the E. coli genome." The amount of genetic variation within the model organism Escherichia coli's genome is controlled by the forces of population size,
recombination, mutation, selection, recombination and gene duplication or loss. Many loci are suspected to be subject to different combinations of these forces. The level of naturally occurring genetic variation is being surveyed for nucleotide sequence level variation at several gene loci of known function. Genetic estimates and statistical tests for the amount, nature, and distribution of genetic variation under various models of molecular evolution are being performed.